Mathematical Sciences: Support for FORTE '93 The Sixth International Conference on Formal Description Techniques

9302591 Tenney FORTE'93 will be the Sixth International Conference on Formal Description Techniques ("FDTs"). The FORTE series of conferences concentrates on formal techniques applicable to distributed systems and protocols. Initially the focus was on the techniques standardized by ISO and CCITT (Estelle, LOTOS, and SDI), but the scope has widened considerably, and recent FORTE conferences have also included papers on CCS, CSP, ANS, 1 , Z, Actor, VDM, RAISE, and other techniques. In addition to a strong theoretical component, FORTE, has always included a practical component, attracting, practitioners in the field by actively soliciting papers from industry and including demonstrations of electronic tools for manipulating formal descriptions of systems. Much of the importance of these formal techniques is the contribution that their use can make in improving the software of distributed systems. The conference provides a forum for presentation of the state of the art in theory, application, tools and industrialization of formal techniques and provides an excellent orientation for newcomers. By bringing together both researchers and practitioners, FORTE conferences open communications between these groups. This helps keep the research vital and improves the state of the practitioner's art. By facilitating the participation of graduate students, the NSF broadens the experience of the students and helps assure growth in the United States in this important research area.